BME: High-resolution Microscopy based on Resonant Nano-Arrays

CBET-0754880, Ozcan

The proposed research plan covers the development of a new form of high resolution microscope by using an array of resonant nanostructures. This novel microscopy modality, which is termed as NanoArray based Microscopy (NAM) can improve the spatial resolution of a low numerical aperture (NA) microscope by e.g., 5 fold without degrading its large field-of-view (FOV). As a result, NAM can achieve a spatial resolution of ~500 nm over ~5 mm2 FOV, and a fast image acquisition speed of >200 mm2/min. Furthermore, the proposed NAM concept can also be extended to the mid-infrared part of the spectrum, providing a resolution of ~2 microns in the spectral wavelength region of 5-16 microns, which contains unique chemical signatures of many biomolecules. The broad goal of this proposal is to merge the concepts of microscopy
with nanophotonics and plasmonics to enable new imaging concepts.